SGER: In Situ Remediation of Contaminated Water with AAM Permeable Reactive Barrier to Remove Mercury and Lead

0091655 Jahanian The objective of this project is to develop a novel, economical and reusable permeable reactive barrier that effectively removes lead and mercury form contaminated water. Specifically, the research will investigate the possibility of using permeable reactive barriers (PRBs) made with alkali activated fly ash (AAM). The AAM, currently in the developmental stage, is a new and novel material made from fly ash in combination with sand, coarse aggregates, water, sodium hydroxide, sodium silicate and a foaming agent. Preliminary results have demonstrated that an AAM PRB effectively removes cadmium and chromium from aqueous solution. The purpose of this research is to determine whether such a barrier material will remove lead and mercury and to investigate the mechanisms and conditions of such removal. Further studies will study the methods for recycling and reusing the barrier material. If successful, the results of this project could lead to advances in the remediation of contaminated groundwaters, while at the same time, utilizing a resource that otherwise would be disposed of in landfills.***